Dissertation Research: Strength and Mode of Selection in Two Contrasting Evolutionary Models

Production of offspring in plants can involve pollen produced within the same plant or pollen from other plants. The balance between these two modes has a profound influence on the distribution of genetic variation in the population and also its evolutionary dynamics. The proposed research will examine the extent to which individuals in a natural population reproduce via self-pollen, and examine the relative importance of several factors that favor low to moderate levels of self-pollination. These include a decline in fitness of offspring derived from self- pollination relative to those that result from cross- pollination and the potential for competition between self and cross pollen. Agriculturally important traits are often selected through breeding programs that involve many generations of self-pollination. In some cases, lines of agricultural plants have been selected for their propensity to self-pollinate since this prevents the dilution of desirable genetic traits by genes from unselected plants. The genetic implications of imposing higher than usual rates of self-pollination on plants are poorly understood. The proposed research will investigate some effects of self-pollination and contribute to our understanding of long term agricultural selection programs.